SBIR Phase I: SoftPDA, a Wireless Software Platform for Enterprise Applications

This Small Business Innovation Research Phase I project will assess the technical and commercial feasibility of SoftPDA, a wireless software platform for enterprise applications. The platform is focused on modeling business processes and automating business critical tasks for wireless device users. As a result of this approach, the platform addresses some of the well-known deficiencies of wireless devices. Such
deficiencies have made wireless devices clumsy or inappropriate for compute-intensive tasks. The result of this research will be detailed design of that platform along with the algorithms necessary to enable it.
The results of have applicability to a wide base of mobile professionals utilizing wireless devices to conduct business, including sales personnel, executives, consultant, attorneys, and finanical personnel engaged in any business enterprise. The results are also relevant to mobile workers in vertical markets such as field service and medicine.